CAREER: Number Theory Research and Outreach

This award funds a wide range of scholarly and educational
projects related to the principal investigator's research interests
in Number Theory. With regards to his own research, the investigator
plans to study, among other topics, partitions and modular forms,
Gaussian hypergeometric series, character sums, varieties over
finite fields, polynomial-exponential equations, and thedivisors of
modular forms. In addition to his own research, the investigator
will develop a number of new outreach and educational programs at
the high school and undergraduate levels, and will become involved in
training programs at more advanced levels. Specifically, the
investigator will direct workshops for high school students and high
school teachers, will support programs for talented undergraduate
students, and will provide enhanced opportunities for
graduate students and postdoctoral fellows.

Number Theory is a very old branch of mathematics which has
its roots in the study of the whole numbers. In modern times it
has become an important tool in many applied endeavors. For example,
systems which enable secure transmission of data over the internet
are based on Number Theory, as are error correcting codes for
reliable data transmission. The Faculty Early Career Development
(CAREER) Program supports the early development of academic faculty
both as educators and as researchers. The program emphasizes the
development of full, balanced academic careers. This award will
allow the investigator to further develop his ongoing program of
research in Number Theory. It will also support the investigator's
broadly based educational and outreach efforts at the high school,
undergraduate, graduate, and postdoctoral levels.